ITR: Little Engines of Proof

Computers are primarily used for automating numerical
calculation but they can also be programmed to make inferences through
symbolic calculation. Powerful automated inference is key to a flexible
and reliable computing infrastructure. Such technology can be used to
build and analyze abstract models of complex systems, find bugs and
optimizations in software and hardware designs, and in the design of more
expressive programming languages. These engineering applications of
inference technology require lightweight inference tools that are
embeddable and composable.

The Infer! project is a collaborative effort between SRI International,
Clarkson University, and Pace University to construct an open foundational
infrastructure for inferential software components. The Infer! project
provides an abstract interface to a range of basic inference capabilities
through a logic middleware layer. The Infer! middleware also includes
mechanisms for combining and mapping between different theories and levels
of abstraction. The theoretical and pedagogical foundations for the
Infer! project are developed in a discipline called "inferential analysis"
that studies efficient inference components and the architectural
framework within which they can be combined. The Infer! technology is
used to explore novel and exciting applications including the qualitative
modeling of complex phenomena and high-assurance open-source software.

Broader impacts in research and education are sought for this project
by decomposing traditionally monolithic inference frameworks into useful
components that can be exchanged in open source form and embedded within
open verification technology. A key part of the project is an outreach
effort to establish standards and interfaces for an open exchange of
components within the verification and analysis research community. This
effort includes active cooperation with the open source software community
through the development of verification components that can be integrated
for use in constructing dependable, verified, and self-checking software.